RIA: In-Place Determination of Early-Age Concrete Strength in Slabs and Walls Using the Impact-Echo Method

Reliable information about the in-place early-age strength of concrete can be used to improve the safety and economy of concrete construction. For example, reliable measurements of in-place concrete strength can be used to determine when adequate strength has been obtained to allow removal of shoring, transfer of prestressing, application of post-tensioning, and termination of curing. In-place strength information allows each of these operations to proceed safely and at the earliest possible time, leading to more economical construction. The objective of the proposed research is to continue development of a new test method, the impact-echo method, for measuring in-place early age concrete strength. In this study, the impact-echo method will be established between P-wave velocity and concrete strength. This correlation relationship will be established using cylindrical concrete specimens is applicable to plate-like concrete structural elements such as slabs and walls. This work represents an advancement towards the development of a standardized test for measuring the in-place strength of concrete using the impact-echo method.